Developing a Taxonomy of Decision Modes

Abstract
***
000079664 (proposal number)
Elke Weber

Recent work in decision making has expanded the notion of how people make decisions.
Many researchers now look beyond the rational choice framework used by economists or
the cognitive information integration framework traditionally used by psychologists.
With the expansion of the traditional notion of decision-making as a cost-benefit
analysis, researchers are finding that decision makers act in a variety of ways that
cannot be described in terms of costs and benefits (Beach & Mitchell, 1990;
Gigerenzer, Todd, & Group, 1999; Hammond, 1996; Klein, 1998; Yates & Lee, 1996). In
some cases, these alternative decision-making modes are even designed to prevent
cost-benefit calculations (March, 1994; Prelec & Hernstein, 1991). Yates and Lee
(1996) coined the term decision modes to describe qualitatively different strategies
for arriving at a decision.

Given the new plurality of views on the ways that people make decisions, it is time to
take a look at the bigger picture and to carefully examine the range of decision modes
that people use. In the current climate of decision making research, the careful
development of a taxonomy of decision modes will be an important contribution to the
field. A central objective of the proposed research is to develop a comprehensive
taxonomy of decision modes and a common vocabulary that can be used to identify and
distinguish decision making processes that fall within each mode. The proposed
taxonomy includes four decision modes, i.e., cost-benefit-based, recognition-based,
affect-based, and reason-based. Each mode is characterized in terms of its
attentional focus, primary cognitive and affective processes, and mental
representations. The further development of this decision mode taxonomy will involve
more precisely characterizing the distinguishing attributes of different decision
modes and developing experimental procedures able to demonstrate more unequivocally
the existence of these qualitatively different modes.

A second objective is to establish a better understanding of the factors that
determine when a particular mode will be used and why. This requires the development
of a model of implicit decision mode selection that is directly related to the
decision mode taxonomy. Which decision mode is used in a given situation is
hypothesized to depend both on person-centered factors (i.e., cognitive and affective
processes) and on situational factors. Identifying and characterizing the factors
that influence decision mode selection will be important not only because it is
theoretically interesting to better understand the decision making process, but also
because the selection of one or the other decision mode is hypothesized to influence
the final decision outcome.

The proposed research has the potential to integrate existing knowledge about human
motivation, the nature and function of cognitive and affective processes, and mental
representation into an adaptive decision making framework. The proposed framework is
far broader than its precursors in both its specification of the criteria on which
people are trying to optimize and its specification of the strategies and processes at
people's disposal. Such a framework has the potential to guide and focus new
research in the field.